Chemistry of Carbanions

This grant in the Organic and Macromolecular Chemistry Program supports experimental and theoretical research by Prof. Andrew Streitwieser, University of California at Berkeley, aimed at analyzing the chemical structure and reactivity of carbanions. Carbanions are negatively charged fragments of organic molecules such as hydrocarbons and occur as transient intermediates during a wide variety of chemical reactions in the laboratory, in the body, and in industrial chemical processes. Thus, the chemical reactivity of carbanions may be said to determine the path of many chemical changes. Dr. Streitwieser's research will include measurements of kinetic acidities of weak carbon acids by the study of hydrogen isotope exchange rates, including benzene in aqueous sodium hydroxide and cyclic hydrocarbons with lithium and cesium cyclohexylamide in cyclohexylamine. Equilibrium acidity studies will be continued, particularly for dianions and for carbanions not stable in THF. Examples of the latter include pentafluorobenzene and other halogenated hydrocarbons. Following observations of low second pKa's for arylacetic acids, measurements of concentration effects will be made to analyze effects of aggregation of both mono- and di-salts. Theoretical work will focus on ab initio computations of electronic structures and geometries of carbanions and their lithium and sodium salts. Calculations will also be used to estimate the transition structures of carbanion reactions, with particular emphasis on the previously noted systems, and on metallated hydrazones, oximes, and imines whose important stereochemical properties are not yet well understood.